GEM: Source and Dynamics of the Radiation Belts Using Multisatellite Phase Space Density Synthesis

The GEM meetings involve well defined campaigns that are coordinated by one or two scientists. The PI for this project is one of the coordinators for the GEM Inner Magnetosphere Radiation Belts campaign. This project will provide for the dissemination of information and planning activities for that campaign as well as providing travel money for the PI to attend the GEM meetings.